Special Projects: DIMACS Workshop: Complexity in Biosystems: Innovative Approaches at the Interface of Experimental Modeling and Computational Simulation

EIA -0121824
Roberts, Fred S
Rutgers University

Special Projects: DIMACS Workshop: Complexity in Biosystems: Innovative Approaches at the Interface of Experimental Modeling and Computational Simulation

This workshop focuses on the new research area of complex biosystems modeling and simulation, bringing together scientists who are developing this field along with interested newcomers. It will serve to build a community of researchers across disciplinary boundaries in computer and mathematical sciences and biology, leading to a continuing collaborative working group in this area. The workshop proposal requests participant support for 3 nonlocal organizers and 18 invited speakers, with additional participant support set aside for nonlocal graduate student participation.